Support for Students to Attend the 40th Annual DAMOP Meeting; May 2009, Charlottesville, VA

The 40th American Physical Society Division of Atomic, Molecular, and Optical Physics
(APS-DAMOP) meeting at the University of Virginia in Charlottesville, VA. The
conference held from May 19 – 23, 2009 was partially supported by the National Science
Foundation (NSF) to cover the travel expenses for students to attend.

APS-Damop is the primary professional society of most American atomic,
molecular, and optical (AMO) physicists. The meeting emphasizes atomic and
molecular structure and dynamics, but also strongly embraces
quantum optics, atom optics, and related research. Both experimental and theoretical research
areas are represented in proportions similar to their national representation and NSF support.
The Proceedings of the meeting are published in the Bulletin of the American Physical Society
and are available on the World Wide Web.